U.S.-New Zealand Cooperative Research: Distributed ComputingTheory and Practice

This award will partially cover cost-of-living expenses for Dr. Richard Ladner of the Department of Computer Science and Engineering at University of Washington while he is conducting research at Victoria University in Wellington, New Zealand with Dr. Ewan Tempero. These two researchers plan to investigate the problems associated with designing an end-to-end transport layer protocol in the Open Systems Interconnect (OSI) model of a computer network in the light of recent theoretical work. The new theoretical results raise the possibility of a new class of efficient protocols for this problem. The protocols will be investigated by analytically and experimentally exploring which design variations have the best chance of practical implementation. Those with most promise will be implemented under Unix using the Internetwork Protocol in a controlled environment. This work brings together the expertise of Dr. Tempero in systems research and Dr. Ladner in theoretical research. This cooperative activity builds on Dr. Ladner's current NSF supported work in distributed and parallel computing (CCR-9108314). Ladner's travel expenses to New Zealand are being covered under a 1992- 1993 Fulbright Travel Grant.